Resource Management for High-Speed Networks

The goal of this research is to develop new algorithms for allocation and control of network resources. The proposal focuses on three topics: 1. Rate based flow control. The research will concentrate on the class of algorithms, the researchers call switch-point adjustment, in which the switching elements in the network take note of the flow currently passing through them, assign a maximum rate to each flow, and pass that information back to the end- points. 2. Congestion constraints. Emphasis will be placed on developing specific congestion controlling techniques that place agreed upon constraints on either the network or the nodes or both. 3. Buffer management within the network. Research will include the study of the architectural alternative of large buffers within the network, and exploration of a possible fairness algorithm and transport protocol suitable for sending short transmissions that can be constrained rather than controlled.